Passivation Coating of Reactive Surfaces via Radio Frequency(RF) Plasma Polymerization and Flourination

Under a Phase II SBIR award the deposition of polymer coatings by pulsed plasmas will be studied. The effects of process parameters and substrate bias on coating composition will be evaluated with special emphasis on the effects of duty cycle, pulse width, RF frequency and absorbed power. A variety of products will be coated for testing in commercial applications where abrasion resistance, surface hardness and surface adhesion are important.